Postdoctoral Research:Science and the Permitting Process for Resource Extraction

This project will be carried out by a postdoctoral fellow trained in Environmental Engineering and mentored by an environmental sociologist. The PI will study the permitting process for the Pebble Partnership 2013-2015, and the resulting scientific, policy, legal, and ethical controversies raised by the project.

The results will provide useful knowledge for science and technology studies and regulatory science.